Development and Dissemination of Innovative Physical Chemistry Experiments: A Faculty Workshop

This project involves developing modern physical chemistry laboratory experiments during a three week faculty workshop for 16 participants. Each participant will be asked to present to the workshop an outstanding experiment from their home institution, provision having been made in advance for the material needs and apparatus. Participants will then develop in pairs two new experiments with write-ups for use in their home institutions, which will be presented to and tested by the whole group. It is expected that experiments involving modern instrumentation (e.g. lasers and computers), easily transportable experiments, experiments involving biochemical materials, and fast kinetics will be developed. These new laboratory exercises will be field tested during the following academic year by at least four of the participants'institutions, and presented at a symposium organized by the project director at a national ACS meeting. Commercial publication of the products will also be explored.